Biomechanics of Plant Habit

9604230 Silk Plant habit, the positioning of plant organs, is in the focus of the proposed research. The work originates from a unified hypothesis, based on existing models for the functioning of wood fibers, to explain twining of vines and the unique monocot leaf display. Early in development of a twining organ transient axial curvature and torsion are produced by gradients in the primary growth rates. The work focuses on several experimental strategies to support and test the central hypothesis. First, measurements in situ of forces that are produced by vines around a supporting pole and measurements of leaf curvature in wild type and mutant plants during development are monitored using unique equipment. The data are correlated with fiber production, orientation and distribution in the cell walls and measurements of lignification are done. Forces of elasticity and springback are determined. Macroscopic measurements are correlated with data after ultrastructural analysis. The results will be correlated with light capture by plants. Results will shed light on how plants use changes in habit to optimize their performance under particular environmental conditions.